Oceanographic Instrumentation - 2004

0402775
Walden
This award to Woods Hole Oceanographic Institution in Massachusetts provides shared-use instrumentation to significantly improve the oceanographic research capabilities of the research vessels Atlantis, Knorr and Oceanus, three ships operated by WHOI as part of the University-National Oceanographic Laboratory System research fleet. Specifically, this award will provide a 75 kHz shipboard acoustic current profiler, a transmissometer, temperature and conductivity sensors and an altimeter for use with CTDs, two scintillation counters, clamps for use with in-situ pumps, freezer and refrigeration systems for scientific sample storage, and supplies for use with multiple opening/closing biological net systems. These improvements will be of substantial advantage to marine scientists using these three ships in their research during 2004 and future years.
***